Support for Gordon Research Conference on Enzyme Organization and Cell Function to be held in Oxnard, California, January 15-20, 1995

Deutscher 9417610 The study of enzymes and metabolic processes in vitro can give only a partial picture of how enzymes actually function in cells. A growing number of investigators have begun to consider how the interaction of macromolecules, their restricted movement, and the high concentration of these components within cells all influence the catalytic action of enzymes in vivo. This information is at the forefront of an emerging discipline that is attempting to meld what is known about cell structure, macromolecular organization, metabolic pathways, and enzyme mechanisms into a coherent picture of how cells carry out their many metabolic processes. %%% The Gordon Research Conference on Enzyme Organization and Cell Function will meet in Oxnard, California, January 15-20, 1995. It is a multi-disciplinary meeting that brings together enzymologists, structural biologists, cell biologists and molecular biologists who all share a common interest in trying to understand how enzymes, and other macromolecules, are organized and function within cells. It is the aim of this conference to foster the interaction and exchange of ideas among the workers in diverse fields whose research is directed towards elucidating how enzymes are organized and function in vivo. ***